Midwest Partial Differential Equations Seminar

This award is for the partial support of a series of conferences in the field of Partial Differential Equations in Midwestern Universities: University of Chicago, Indiana University, University of Wisconsin Madison, Northwestern University, Purdue University, Notre Dame, Illinois-Chicago, Illinois-Urbana. The conferences will provide the opportunity for communication and collaboration among faculty and between senior and junior investigators.